Approximation Algorithms via Linear Programming

Most combinatorial optimization problems are NP-hard, and hence unlikely to have a polynomial-time algorithm that finds an optimal solution. This project investigates the design of algorithms that find near-optimal solutions but also come with a guarantee that the solution is not too much worse than optimal. This research investigates algorithms that produce solutions guaranteed to be nearly-optimal by relying on information contained in the optimal solution to linear programming relaxation. One consequence of such results would be to provide a theoretical justification for the strength of the bounds given by these linear programming relaxations. By giving algorithms for which one can prove that the solution found has value relatively close to the LP bound, one also shows that relative error of the solution(compared to the integer optimum) is also small. Furthermore, past experience has shown that the insight needed to devise algorithms with such performance guarantees can also lead to algorithms with superior empirical performance. The research focuses on several specific areas in which computational experience has indicated that particular linear programming relaxations provide strong bounds and attempts to build on this to design approximation algorithms with good performance guarantees and good practical performance. Scheduling problems arise in a cross- section of applications, and the proposal focuses on several basic scheduling models, with the aim of developing algorithmic techniques that are not particularly application specific. Facility location problems are a type of network design problem in which the aim is to build a distribution network consisting of facilities and routes used to serve clients from the facilities. Known relaxations produce extremely high-quality bounds and the research will attempt to provide some theoretical justification for this, as well to devise new algorithms that also build on these. The traveling salesman problem is per haps the canonical optimization problem, and this investigation will try to resolve a well-known conjecture on the strength of the so called Held-Karp lower bound. For the bin-packing problem, this research will focus on a conjecture that there exists a polynomial-time algorithm that uses at most a constant extra bins, and is based on the cutting-stock LP formulation. For some other problems, such as the maximum acyclic sub-graph problem, in addition to the LP-based approach described above, this investigation will also explore algorithms based on convex programming relaxations, which have recently been used to strengthen linear relaxations in some settings. The ultimate goal of this research is to devise algorithms that will not just complement the ongoing computational work in polyhedral combinatorics with a theoretical foundation, but will also develop algorithmic implementations to solve these applications more easily.***